Source Mechanisms of Plasma Waves in the Magnetosphere

This grant supports a study of internal energy sources of the plasma waves in the space plasma (the magnetospheres of the earth and other planets) by using analytical and numerical methods. The theoretical models will be developed to incorporate realistic features of space plasma including inhomogeneities in density and temperature, anisotropy of the temperature, finite beta and larmor radius effects. The detailed study of the internal energy sources of gradients, particle beams and nonlinear parametric processes will be carried out. Appropriate dispersion relations will be derived and numerically analyzed to obtain wave frequency, growth rates and threshold limits. The model generated wave parameters will be compared with the observations. The importance of geophysical low frequency waves is the interpretation of geomagnetic pulsations (micropulsations) as low frequency hydromagnetic waves originating in the magnetosphere. Thus the waves become a tool for the study of the near earth plasma density. Furthermore, the study of the waves provide an opportunity to elucidate basic processes not readily available in the laboratory.